Serotaxonomic Investigations of Recent, Pleistocene, and Pliocene Brachiopods

Funds are requested for an investigation of the polypeptide content of the shells of Recent, Pleistocene, and Pliocene brachiopod genera in an attempt to assess the potential and limitations of serotaxonomy and polypeptide analysis in extant and fossil shells of varying age. We plan to use immunological methods to see if differences in cross-reactivity can be detected between these brachiopod genera, and between their superfamilies. Preliminary work shows that these brachiopods have amino acids present as peptides within their shell material. It is proposed to investigate these remnant macromolecules in the shells of brachiopods of different ages. Amino acids from the fossil shells will be analysed for enantiomorphy as a test for recent contamination. Work on extant material will serve to fine-tune our methods, and work on Pleistocene and Pliocene samples should help us measure the increasing effect of time and diagenesis in the anticipated destruction of shell protein, and should show whether similar work on increasingly older fossil shells is likely to prove worthwhile.